CSR---SMA: Dynamic Analysis and Control for Robust Scalable Open Distributed Systems

This project addresses the problem checking if a system's behavior meets its specification. The technical focus areas of the project are to integrate computing and networking to support reliable, complex distributed systems and to enable data driven applications for predicting system behavior. Specifically, the techniques will enable an assessment of the probability of systems failure due to software errors. Large-scale distributed systems and sensor networks have a crucial role in modern society. However, such systems are highly prone to failure because of software errors. This project will provide powerful ways of debugging and monitoring such systems to reduce errors. Specifically, it will provide ways of rigorously relating the tests to specifications and extending their coverage. This will enable software developers to catch errors in coding due to interactions between components in distributed systems. Moreover, the project will focus on efficient ways of distributed monitoring of systems so as to provide for timely checking while conserving communication bandwidth. A goal is to get the techniques to be sufficiently efficient that they can be applied to networks of embedded systems. The project will build new tools and experiment with applications in order to test the ideas.